SM: Logic Year at the University of Florida

Special Year in Mathematical Logic, University of Florida, 2006-2007

The special year in mathematical logic will be devoted to the
exploration of various channels of communication between several
fields of logic as well as the rest of the mathematical sciences.
Mathematical logic is entering a phase of increasingly intense
conversation with other parts of mathematics. In one workshop, we
will concentrate on the relationship between computability, effective
descriptive set theory and computable analysis on one hand and
numerical methods and analysis on the other, such as the study of
effectively closed sets and effectivity of reals and real functions.
Potential special topics will include algorithmic randomness, quantum
computation, reverse mathematics. The second workshop will relate the
current trends in definable forcing and determinacy with measure
theory, potential theory and dynamical systems, as well as with the
games used in biomathematics or economics. Special topics include
Borel equivalence relations and definable forcing. The third workshop
will further explore the connections between singular cardinals and
inner models. Recent work on large cardinals and inner models has
helped to advance the frontier of set theory and its applications to
mathematics.

The special year will bring together leading scientists from many
areas of mathematical logic, in an effort to advance our understanding
of this fundamental discipline. Just as mathematics is the language
of science and provides the foundation of science, so logic is the
language of mathematics and provides the foundation of mathematics.
The subject of logic has its roots in classical philosophy and today
has branches in many disciplines, including mathematics and
philosophy, as well as computer science, linguistics, and law. Logic
is used in expert systems which, for example, help doctors diagnose
illness with the aid of computers. Current research on hybrid
algorithms is using logic in the development of software which will
map out the flight plan of an airplane in real time. While the program
is based in the mathematics department, other departments, including
philosophy and computer science, will also participate. The broader
impact of the project includes an emphasis on participation of
graduate students, junior researchers and women mathematicians. There
will also be a focus on participants from the Southeast region. We
will publish proceedings of the work presented during the special
year.